Scholarships for Engineering Students from Underrepresented Groups

This scholarship program increases the size and diversity of the pool of qualified engineers by making an engineering education accessible to students from underrepresented groups with limited financial resources. Specifically, scholarship funds provide needed financial assistance to African-American, Hispanic, Native American, Pacific Islanders and female students. Scholars receive funding for four years to ensure successful degree completion. The project develops an interdisciplinary cohort of engineering majors and involves them in activities of the AT&T Minority Engineering Program (MEP), which provides peer tutoring, collaborative learning, an interactive learning lab, and a student life skills component. These MEP program efforts have dramatically increased retention rates of minority engineering students at Auburn University. The MEP activities are enhanced in the proposed project with career development workshops, support for technical society participation and advanced level tutoring. Approximately 73 students benefit from the activities of this scholarship program.